Elementary, Secondary and Informal Education: Informal Learning Program Planning -- A PreConference Workshop

The Ameircan Association of Botanical Gardens and Arboreta (AAGBA) requests a 24-month conference grant for a professional development workshop, "Starting Right: Team Building and Project Planning," to be presented at all six of the AAGBA regional meetings. The emphasis of this worshop is on the critical early planning stages of an informal learning project. In order to increase the professional capacity of those working in botanical gardens and arboreta, the primary goals for this workshop are to enhance the ability of institutionally-based teams to work together and to define clear goals and objectives for a project on which they are working.